Two-Color, Portable Laser Excitation Source

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program and the Office of Multidisciplinary Activities (OMA) will assist the Department of Chemistry at Cornell University to acquire a two-color, portable laser excitation source. This equipment will enhance research in a number of areas including the following: (1) dynamics and energetics of H-H, C-H, and C-C bond activation and (2) photodissociation dynamics of radicals and molecules. A laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactivity and non-reactivity of molecules..